Population Biology of the Anther Smut Fungus, Ustilago violacea: Genetic Processes Revealed by Molecular Markers

Micro-organisms such as bacteria and fungi are the cause of many diseases of plants and animals. The implement successful disease control, one needs to understand the population biology of the infectious organisms. Knowledge of the extent and patterns of genetic variation in the pathogen population is particularly significant since disease control practices may not be equally effective against all genetic forms of the pathogen. However, studies of the population genetics and ecology of micro-organisms under natural conditions are often lacking simply because the organisms are small, have little morphological variation, and individual organisms are hard to distinguish. Studies will be undertaken on the population biology of a naturally occurring fungus which infects plants in the Pink family. Past studies of the plant revealed that host populations can be genetically variable in their resistance to the anther- smut disease. To investigate the extent of fungal genetic variation, a new-molecular technique called RAPD (Random Amplification of Polymorphic DNA) which can detect genetic differences among individuals will be used. This will allow determination of the biology of the fungus, such as the degree to which host plants are multiply infected and whether different strains of the fungus are more successful at infection than others. This technique will also be used characterize patterns of genetic variation among fungal populations, for instance the degree to which spatially separated populations are genetically distinct. The anther-smut disease is a model system to study evolutionary and ecological interactions between hosts and pathogens. In particular, this research will evaluate the usefulness of the RAPD technique for investigating aspects of pathogen population biology that have been previously ignored because of the lack of a method for distinguishing fungal individuals. RAPD techniques have numerous potential applications in applied studies of host/pathogen interactions. For instance, it will be important to track the spatial dispersal of micro-organisms to evaluate the spread of human-designed organisms (such as biocontrol agents) in the environment. The RAPD technique has considerable promise in this regard because of the high resolution it offers in distinguishing organisms. Further, since our model system makes use of naturally occurring genetic variation, there are no problems in our study of introducing unknown new genetic variants into the environment.